Midwestern Conference on Asymptotic Analysis

This award provides funding for US participation in the conference "Midwestern Workshop in Asymptotic Analysis" that will be held October 4-6, 2019 at Purdue University Fort Wayne. The conference focuses on recent developments in analysis, especially in the areas of applied analysis, approximation theory, potential theory, and complex analysis.

A number of distinguished mathematicians have agreed to participate in this conference. This award gives early-career researchers, members of underrepresented groups, and others an opportunity to participate in the conference. The organizing committee will strive to advertise this widely through a number of different activities. More information will be made available at http://mwaa.math.iupui.edu/.